Dynamics of Semiconductor Surfaces: Experiment and Theory

9313047 DiNardo Technical abstract: It is proposed to combine temperature- dependent momentum-resolved electron vibrational spectroscopy with theoretical calculations and simulations to study the dynamics of reconstructed semiconductor surfaces and epitaxial interfaces. A new, high-resolution angle-resolved electron energy loss spectrometer (HREELS) will be applied to the measurement of the surface phonon band structures of the Si(001) and Ge(001) surfaces and the heteroepitaxial Ge/Si(001) interface. The surface potentials of these systems are strongly anharmonic, resulting in dramatic temperature-dependent structural and vibrational changes that will be probed for the first time experimentally with electron loss spectroscopy and modeled theoretically. Non-technical abstract: The detailed characterization of semiconductor surfaces and interfaces is of a considerable fundamental and technological interest. It is proposed to study the surfaces of semiconductors by investigating their surface vibrational properties. The principal experiment tool will be a state-of-the-art high resolution electron energy loss spectrometer. It is planned to investigate the vibrational properties of surfaces and interfaces as a function of temperature in order to provide information about the dynamics of the surfaces. These studies are likely to have an impact on semiconductor processing, including growth and etching phenomena. ***